Planning Visit to Organize a Joint Workshop on Internet/Databases Between the US and Brazil

9907264
Chen

This U.S.-Brazil proposal is for a planning visit by Dr. Peter P. Chen, Louisiana State University to meet with Professors Rubens Melo and Antonio Furtado of the Pontificia Universidade Catolica do Rio de Janeiro, Brazil to develop a joint workshop on the Internet and database use by Brazilian and American scientists.

Dr. Chen's experience in computer science, particularly entity-relationship models, and storage is complimented by Dr. Melo's work in program languages, databases and image processing.
***